Analysis of Elandsfontein and Duinefontein Faunal Remains

Drs. Klein and Cruz.Uribe will analyze faunal materials collected at three Pleistocene sites located in the western Cape Province of South Africa. The largest of these, Elandsfontein, is a large stratified site which over several decades of examination has yielded thousands of faunal items, as well as a hominid skull and stone tools. Although the site cannot be precisely dated, its earlier component falls within the Middle Pleistocene, roughly 500,000 years ago, while its upper unit postdates this time. Some of the materials probably result from human activity while others can be attributed to other causes such as carnivore kills. At two other sites in the region, Duinefontein and Springfontein, smaller assemblages have also been recovered. In their analysis, Drs. Klein and Cruz.Uribe will identify species represented. They will also study the break, cut and other marks on the bone in an attempt to determine causal factors. The work will accomplish several important goals. First, it will increase understanding of mammal evolution in Africa over the last million years and provide a basis for relative correlation with sites. Second, it will shed additional light on early human activities in Africa and clarify the role of hunting in these societies. Finally, it will help develop standards to determine whether humans played a role in the accumulation of specific bone assemblages. This research is important for several reasons. These collections constitute an important archaeological and paleontological resource and have not been properly studied. This work will remedy that situation. It will also help archaeologists to develop an important set of analytical tools which will be useful in many parts of the world.